Non-Conventional, High-Resolution Pattern Generation

The generation of high resolution (submicron) precise patterns in thin films is a crucial pacing technology in the manufacture of mocroelectronics. We propose to investigate novel approaches to achieving economical, highly precise generation of patterns in the size range 1-micron to below 100 nm. Some of the work is an extension of the existing project on the use of the scanning tunneling microscope (STM) as a pattern generator for microlithography; other aspects are distinct. The following specific topics will be investigated. 1. Conduction and exposure mechanisms of ultrathin organic thin films under the exposure conditions of the STM. 2. The effect on STM beam parameters of insulating films partially filling the gap. 3. The engineering and use of micro-electron optics (that is, electron optical elements built on a micron scale using silicon micromachining techniques) in general and in particular for increasing the clearance between tip and target in an STM writing configuration. 4. Ways of increasing throughput of STM writing through, for example, multiplexed exposure points with independent blanking. 5. The techniques and implications of 'smart substrates' (i.e. substrates with some latent structure that ensures that pattern edges can only occur in precisely-defined locations) for achieving economical, highly-precise pattern generation.